NANO: Combinatorial Self-assembly of Nanocircuits on Addressable DNA Nanoscaffolds

This proposal aims to develop highly programmable and efficient .bottom-up. methods for
constructing nanoelectronic circuits, using DNA nanoarchitectures as scaffolds and sequence
specific molecular lithography as a tool to combinatorially organize metallic and semiconducting
nanowires into rationally designed ensembles with potential applications of self-assembling
functional nanoelectronic devices. Designer DNA nanoscaffolds are emerging as the material of
choice for creating sophisticated nanopatterns with the potential capability to pattern nano-scale
objects with addressability, but their successful integration with functional nanomaterials requires
interdisciplinary studies.

Intellectual merit of proposed research:

The programmed and efficient self-assembly of rationally defined nanoelectronic circuit
patterns is presently one of the outstanding challenges in nanotechnology. The main research
objective of this collaborative project is to demonstrate that self-assembly of addressable
molecular lithographic template can be achieved using DNA based self-assembly. A team has
been assembled whose collective expertise can comprehensively address the most pressing issues
in developing DNA nano-architectures as spatially addressable templates for metallic and
semiconducting nanowire ensembles. Two main goals will be achieved through this proposed
research: 1) Design and demonstrate self-assembly of DNA nanostructures to form patterned
lattices containing sequence specific template for DNA based molecular lithography. 2) Bridge
the gap between researches in DNA based molecular lithography and DNA self-assembly to
develop combinatorial methods for highly programmable nanoelectronic circuit .bottom-up.
assembly.

Broader impact of proposed research:

The broader impacts of this project include potentially significant influence on the production
of future integrated circuits and microprocessors. Additional impact will occur in educating
students about the various aspects of constructing nanoelectronic systems. Efforts will be
continued in recruiting underrepresented students including minorities and women and train them
in DNA based nanotechnology. Undergraduate and high school students will also be recruited to
this project. Distribution of our results will occur through various scientific publications,
interactions with industrial partners, and through Duke University.s Center for Nano-science and
Materials. A cohesive set of courses that address the important aspects of nanoscale computer
device research will be designed. This includes topics in DNA Nanotechnology, Nanoelectronic
Devices and Architectures.
As another important educational component, a .DNA-based nanotechnology web site. aimed
at a general public audience will be designed. The PI and co-PI.s access to talented computer
science students enable us to implement such a web site with a user-friendly interface. The impact
of DNA nanotechnology can be brought to its full potential by integrating the proposed research
with a complementary training and knowledge transfer program. A Web-based channel will help
promote DNA nanotechnology in the public domain.
This proposal falls into the following EMT theme: advance the fundamental capabilities of
computer and information sciences and engineering by incorporating insights from nanoscale
science and engineering.